Engineering Research Equipment Grant: Totl Organic Carbon Analyzer

This is an award to provide support for purchase of engineering research equipment to permit determination of organic carbon concentrations in samples of aquifer solids, sediments, soil, microbial biomass, groundwater and suspended water droplets in the atmosphere. The equipment to be purchased with this support consists of a Dohrmann High Temperature Total Organic Carbon Analyzer and accessories consisting of a Boat Sampler, an Autosampler, and a Hewlett Packard Thinkjet Printer. The proposal leading to this award was submitted in response to the Program Announcement and Guidelines NSF 90-146, Research Equipment Grant Program. The equipment is expected to enhance the investigator's ability to conduct research on soil-water partitioning, of significance in groundwater contamination and engineering approaches to dealing with this environmental problem. The equipment will also provide significant support for other research projects being conducted by the co- investigators.